The Fourth Pan American Congress of Applied Mechanics (PACAM IV)

9409072 Mook This grant provides partial support for the travel of selected US participants to attend the FOURTH PAN AMERICAN CONGRESS OF APPLIED MECHANICS that will be held at the Universidad del Salvador in Buenos Aires, Argentina, January 3-6, 1995. Participants will be selected based on abstracts in all areas of applied mechanics. The CONGRESSES contribute to the interactions among the peoples in the Americas. ***